Mapping and Redirecting Metabolic Fluxes to Attain Significantly Lessen Oxygen Requirements, Acid Production, and Enhanced Recombinant Culture Productivity

9622821 Ataai This proposal is on research which addresses one of the bottlenecks in protein production frequently reported for recombinant E. coli, namely overflow production of semi-oxidized sugars and carbohydrates (e.g. acetate) which reduces the total carbon yield and also indicates inefficient metabolic biosynthetic/catabolic fluxes. The specific goals of this research are to: (1) build on the investigators' Bacillus research to experimentally validate (using NMR) the feasibility of optimized flux distribution centered around pyruvate kinase (PYK), (2) transfer the yield-increasing strategy to E. coli by deleting PYK isozymes and analyze via metabolic flux analysis, again coupled with NMR, (3) determine scale-up potential in terms of mutant E. coli concentration, recombinant protein production, and oxygen consumption, and, (4) evaluate whether there is a link between energy-consuming proteolysis and ATP-generation as shown in high glucose feed E. coli cultures. ***